NMR Spectroscopy in the Undergraduate Chemistry Curriculum

The chemistry discipline has introduced NMR experiments into its undergraduate curriculum. Although NMR theory is treated in several courses, York students have had little opportunity for first-hand experimental experience. A Varian EM-360L spectrometer with spin decoupler and variable temperature accessories is incorporated into the laboratory program. Students have the opportunity to conduct challenging experiments illustrating several important NMR methods. The instrument is utilized for unknown identification, determination of enantioimeric composition, spin decoupling and NOE, and the determination of bond rotational frequencies and energy barriers. In addition the students make extensive use of the instrument in independent research. The institution is matching the NSF grant with an equal amount of funds.